International Meeting on the Analysis Design Performance andStrengthening of Highway Bridges, Starting November ll, 1991

This project is for a group of American bridge engineers, to attend a Pacific Bridge Meeting and to interact with the bridge engineers at various organizations in New Zealand. The study tour is scheduled from November 11-20, 1991, including the bridge seminar on November 20-23, inclusive.